Processing of Controlled-Microstructure Nanosized Dielectric and Electrostrictive Powders: The Effect of Final Grain Size on Phase Transitions and Dielectric Properties

9417468 Datye The primary objective of this research is to study the effects of grain size on the phase transitions and dielectric properties of important dielectric and electrostrictive materials including: barium titanate, lead titanate, and lead magnesium niobate. The research is being performed jointly between the Industry/University Cooperative Research Center for Microengineered Ceramics at the University of New Mexico and the Industry/University Cooperative Research Center for Ceramics at Rutgers University. Precursor powders, with controlled microstructures and chemical purity and nanosized dimensions, are being produced via a novel aerosol decomposition process at the University of New Mexico. The powders are characterized using spectroscopy, microscopy, and surface area techniques. Processing techniques being employed include dry pressing, hot isostatic pressing, and doctor blade tape casting. Densification behavior will be studied using dilatometry. The dielectric properties are being characterized also. This joint effort is a natural collaboration , as it utilizes the strengths of each institution, and results in more than the sum of the output for each working separately. The research is very timely for the electronic ceramics industry. The results of this research will be of use to manufacturers of thin film multilayer electrostatic/piezoelectric devices. Additional funding is provided to augment the ongoing research program and provided for a membership in the Center with funds provided by the U.S. Department of Air Force, Kirtland AFB. The Program Manager recommends the University of New Mexico be awarded $75,000 for 36 months through a "TIE" project with Rutgers University. An additional $29,448 is recommended for one year with funds provided by the U.S. Department of Air Force, Kirtland, AFB.